ADVANCE Fellows Award

EIA-0137098
Bennett, Beth Anne V
Yale University

Title: ADVANCE Fellow: Local Rectangular Refinement Solution-Adaptive Gridding Method

This proposal, extending previous work, pursues two lines of research.
1 Expansion of the Local Rectangular Refinement (LRR) adaptive gridding to 3D and
2 Numerical Modeling of Solidification of Aluminum Alloy. The former, an adaptive grid method for simultaneous, fully implicit solution of coupled systems of nonlinear partial differential equations arises from the modeling of complex 2-dimensional (2D) physical systems, such as those encountered in fluid flow, heat transfer, and combustion applications. The LRR method will be expanded to 3D, making it a viable tool for simulating real-world 3D systems, including solidification and combustion processes. The completed adaptive code on 3D thermofluids applications will be tested, quantifying its accuracy and efficiency by comparison with a structured-grid code. The latter, a new application for the LRR method, involves collaboration with WU, an expert in nucleation theory. His work will be embedded within the existing LRR-2D code and later with the 3D code. Because microscopic material properties such as strength and hardness depend strongly upon microscopic quantities (e.g., grain size distribution), the ultimate goal is a numerical model which will predict the grain size distribution in an aluminum alloy part of simple 3D geometry, under various processing conditions.